Biopolymer Sequence Analysis by Mass Spectrometry

This grant, jointly funded by the Analytical and Surface Chemistry Program in the Chemistry Division and by the Instrumentation and Instrument Development Division in Biological and Behavioral Sciences, will further the development of ion trap mass spectrometry for sequencing biopolymers. Instrumentation for determination of polypeptide molecular weight and fragment molecular weight will be enhanced to that point that proteins up to MW 100,000 can be sequenced, even when only a few femtomoles are available. Novel operating modes of the ion trap to allow selective viewing of a reduced mass range at enhanced resolution will be developed. %%% This grant renews support of research in instrumentation for sequencing of such biopolymers as DNA and proteins. Novel ion trap mass spectrometer configurations will be employed for sequencing species with molecular weights up to 100,000. Potential applications include structural elucidation of enzymes, identification of mutations, and sequencing of glycoproteins (proteins bound to carbohydrate chains).